Conference: Young Geometric Group Theory XIV

The conference Young Geometric Group Theory XIV will take place at the Korea Institute for Advanced Study in Seoul, South Korea, from June 8 to June 12, 2026. Young Geometric Group Theory XIV will bring together early career mathematicians working in geometric group theory and related areas to exchange ideas, present research, and build collaborations. The conference will include mini courses by leading researchers, research talks, poster sessions, and discussion groups designed to encourage interaction among participants at different career stages. By supporting the participation of twenty early career researchers based in the United States, the project will help ensure that promising young mathematicians can take part in this international exchange. The conference is particularly significant because it will be the first edition of the series held in Asia, expanding connections between research communities in Asia, Europe, and the United States.
Broader impacts include strengthening the global mathematical community, supporting the professional development of early career researchers, and fostering long-term international collaborations.

The project supports travel and local participation costs for twenty United States-based graduate students and early career researchers to attend the conference. The program is designed to promote intellectual exchange through a combination of mini courses delivered by senior experts, research talks by participants, informal discussion sessions, lightning talks, and a poster session. These activities create opportunities for early career researchers to present their work, receive feedback, and develop collaborations with peers and senior mathematicians. The selection of speakers and topics is intended to expose participants to several central directions in geometric group theory, including hyperbolic groups, mapping class groups, and related geometric and dynamical structures. The project will help integrate emerging researchers into the international research community and encourage future collaborations across institutions and continents.
Conference webpage: https://sites.google.com/view/yggt2026/